Connectivity Proposal: ERC for Computational Field Simulation at Mississippi State and Computational Combustion Laboratory at Georgia Tech

This award provides funding for a two-year collaborative project between the NSF Engineering Research Center (ERC) at Mississippi State University on Computational Field Simulation and the Computational Combustion Laboratory at the Georgia Institute of Technology. This project will develop state-of-the-art large-eddy simulation (LES) techniques for non-equilibrium, reactive fluid flows, implement these models into a state-of-the-art computer code being developed at the ERC, validate the physical accuracy of the resulting simulations by comparison with benchmark calculations and experimental data, and visualize the physics and processes involved. This effort brings together expertise developed at the ERC in high-performance computing and numerical techniques for reactive flows with the knowledge developed at Georgia Tech in turbulence modeling, large-eddy simulation, and combustion simulation. The LES capabilities will be added in a computationally efficient manner with the Loci framework being developed at the ERC. Loci is a C++ library that implements a specification system for the development of unstructured numerical applications.